Equipment to Sustain Combustion Research at NC State

This award provides for acquisition of items of equipment to replace equipment presently
on loan to North Carolina State University from General Motors, the U.S. Air Force, and
NASA. Items to be acquired are a Nd:YAG pumped dye laser, a digital oscilloscope, and
ultraviolet lenses for existing digital cameras. They are to be used for studies of
interaction between chemical kinetics and fluid dynamics in premixed and diffusion
flames.